Information Management Requirements Study

The proposal requests support for convening an study group to examine networking and computing advances to enable new information management capabilities for domains of particular interest to sectors of the government. The study group will produce and disseminate its findings within one year of the start of the project.